Halogen Atom Source for Semiconductor Etching

This Phase II SBIR project provides for the development and demonstration of novel applications of an ultrahigh vacuum compatible, microwave discharge source of chlorine and fluorine atoms. Chemically assisted etching of semiconductor materials with halogen atoms in conjunction with photon, electron, and ion stimulation will be investigated. The Phase I project was successful in demonstrating that a previously developed fluorine atom source could be modified so as to produce chlorine atoms.